WISE 2000-Sponsorship of Two WISE Students Interns

ABSTRACT
CTS-9909801
R. Morris/SAE Fdn.

The objectives of WISE 2000 is to support the participation of two additional engineering students each year in the 1999-2001 Washington Internships for Students of Engineering (WISE) programs. The NSF grant will be used to help facilitate the participation of students from underrepresented minority groups and currently underrepresented engineering disciplines to make the program truly multidisciplinary and diverse.

Since 1980, the WISE program has brought up to 18 students each summer a total of 279 thus far-to Washington, DC to learn first-hand how government officials make decisions on complex technological isssues and how engineers contribute to legislative and regulatory public policy decisions. Throughout the ten weeks, the students interacted with leaders in the Congress and the Administration, industry, and prominent non- governmental organizations. Meetings with Congressional committees, executive office departments, and corporate government affairs offices were daily activities. In addition, each student researched and completed a paper on a current and topical engineering-related public policy issue.